Big Sky Conference on Discrete Mathematics

This award will help support the Big Sky Conference on Discrete
Mathematics which is held in Missoula, Montana. There are two
main objectives of the conference. First, the conference is
designed to bring together researchers and educators from the
geographical area with interests in discrete mathematics in order
for them to share ideas, present their work, and collaborate.
Topics for the conference cover areas of discrete mathematics
including combinatorics, graph theory, discrete geometry, design
theory and theoretical computer science. The conference attracts
mathematicians and computer scientists from western US and Canada
and in doing so has strengthened the discrete mathematics
community in the region. The conference also includes two
research-level invited addresses. One is given by a senior-level
experienced mathematician and the other by a younger researcher
who has made significant contributions to the field. The presence
of these internationally-known researchers greatly enhances the
conference. Secondly, the conference seeks to provide an
opportunity for students, teachers, and others in the region to
learn more about contemporary mathematics. This award provides
support for undergraduate and graduate students to attend the
conference and present their work. In addition, a public lecture
(given by one of the invited speakers) is an integral part of the
Big Sky Conference. The audience, comprised of people of all ages
and many different walks of life, is treated to a dynamic lecture
on the beauty and relevance of mathematics. The conference will
be hosted by The University of Montana.

The Big Sky Conference on Discrete Math is held in the early fall
at The University of Montana. The primary focus of the conference
is stimulation and dissemination of research and creative ideas in
discrete mathematics. This includes promoting collaboration among
regional colleagues, supporting student research, and
demonstrating to the general populace that mathematics is a
dynamic evolving field with applications in modern society. The
events of the conference include contributed talks by faculty and
students and three invited addresses. One of the principle
speakers is an internationally acclaimed specialist and
outstanding expositor. This speaker gives a research level
seminar and a public lecture. With attendance at the public
lecture between 300 and 500 people, public awareness of
mathematics has flourished during the years of the Big Sky
Conference. The other speaker is a younger researcher who has made
a significant contribution to an area of discrete mathematics.
This person typically gives a specialized talk about a recent
advancement in the field. The conference attracts researchers,
educators, and students from the US and Canada, especially those
in the northwest region.